Partial Support for the Laser Diagnostics for Combustion Gordon Research Conference

Support is provided to subsidize travel and attendance of students and other young investigators at the Gordon Research Conference on Laser Diagnostics in Combustion on June 20-25, 1999 in Il Ciocco, Italy.